Rapid Prototyping of Electrically Discharged Machining Electrodes

9420386 Bradley The processing of zirconium diboride/copper composite parts by Selective Laser Sintering (SLS) is being investigated. Zirconium diboride powders with a thin polymer coating are processed using selective laser sintering of the zirconium diboride powders followed by burn out of the polymer binder in a later annealing step. Infiltration of copper produces the desired composite. Evaluation of the zirconium diboride/copper composites considers (1) the dimensional precision; (2) the surface finish; and (3) the performance (in the form of electrical discharge machining electrodes by studying the sink rate and wear ratio of the electrode as well as the surface finish of the cavity produced). Comparisons of the performance of the SLS fabricated electrodes will be made with electrodes created using conventional machining. Observations of behavior during processing will be made after each step using scanning electron microscopy to guide the development of physically based models that predict dimensional changes and surface roughness. Once a workable process has been developed, three dimensional electrodes will be fabricated and evaluated in an electrical discharge machine. %%% Zirconium diboride powder/copper composites are superb materials for electrical discharge machining electrodes, but are so difficult to machine that they are never used. Rapid prototyping of zirconium diboride powder/copper composites by selective laser sintering will allow fabrication of these composites. Such composites will have significant performance advantages over graphite and copper electrodes. ***